Research Internship Program in Science, Mathematics and Engineering

Twenty-five sophmore and junior high school students will participate in research at laboratories affiliated with Boston University, for six weeks during the summer. These high ability secondary school students will live on the campus of Boston University for the duration of the project. The coordinating staff of two Program Directors and Resident Assistants will also live in the dormitories with the participants. The objective of this Research Internship Program (RIP) is to sensitize students to scientific careers through involvement in research, exposure to questions at the frontiers of knowledge and exposure to the methods and ideas used to answer them. Each student will be paired with a Preceptor, a person actively engaged in research, and will work with him or her on on-going research problems. A series of weekly seminars will provide a more global view of research in science. These sessions will provide coherence to the program and give the students an opportunity to learn from each other as well as from the research community at the university.